NRI: Collaborative Research: Dynamic Braces for Quantification and Treatment of Abnormal Curves in the Human Spine

Idiopathic scoliosis is a condition in which the spine develops a strong left/right curvature, forming a C- or S-shape instead of a straight line. Approximately 2% to 3% of adolescents suffer from the disorder, with about 1 in 500 required to wear corrective braces until skeletal maturity, and about 1 in 5,000 requiring spinal surgery. A typical scoliosis brace is worn around the trunk and hips, and completely immobilizes the upper body, which substantially degrades quality of life. This project will demonstrate a hybrid dynamic brace for correcting scoliosis, while minimally affecting the activities of daily living. Compliant passive braces tailored to the treatment needs of individual wearers allow greater freedom of movement, but cannot respond to changes in posture or more gradual evolution of the wearer's condition. Active braces provide dynamically responsive corrective forces, but require power-hungry motors, and greatly increase weight and complexity. This project will demonstrate a hybrid approach, providing freedom of movement and dynamic response, but without the weight and power requirements of fully active designs. The result is essentially a wearable robot that continually monitors and responds to the needs of the user.

This project will lay the scientific foundation for the design of dynamic brace co-robots, and the evaluation of their effectiveness for both quantification and treatment of the abnormal spine. These dynamic braces will be designed to modulate the corrective forces on the spine in desired directions while still allowing the users to perform typical activities of daily life. The project will investigate the hypothesis that dynamic braces have the potential to transform treatment in this field, as these can provide effective control of corrective forces on the spine both spatially and temporally. The scientific studies will characterize the spatial stiffness of the spine in a specific pose and during different functions. The studies will target treatment outcomes in subjects with abnormal spine. Furthermore, this project will train students in interdisciplinary research and will result in future workshops and courses appealing to engineers, clinicians, medical caregivers, and high school students, motivating careers in STEM.